On Foundational Issues in Computer Science

This project covers three areas involving the theory of computation. First, is work on average case complexity. Here there has been progress both in the positive direction (proving specific NP hard problems to be polynomial time on average), and in the negative direction (proving some randomized NP problems to be complete in the average case). Work is continuing on both aspects of the problem. Second, work is proceeding on a variety of complexity issues related in one way or another to randomness. Time-space trade-offs for coin- flipping machines is one of those issues. Finally, there is work on new time-complexity classes: time polynomial in input or output, and nearly linear time.